Laboratory for Applied Scientific Computing.

This data acquisition and analysis laboratory supports a unique applied scientific computing program at this institution. Students in this program study digital electronics, interfacing, science applications and carry on individual computing projects. In their courses, they gain experience in using off-the-shelf interfacing equipment and software and develop their own versions for data acquisition and instrument control. Because of its simplicity, this lab is also used by other science majors at this institution. This award is being matched by an equal sum from the grantee.